College of Engineering Strategic Plan

The purpose of this award is to support the development of a strategic plan for the College of Engineering at Southern University. Southern University is a historically black institution (HBCU) challenged with educating minority engineers. Presently, Black Americans are underrepresented in the engineering population and it has been projected that the future supply of engineers will be less than the anticipated demand. Standard methodology similar to that certified by the American Association of School Administrators/National Academy of School Executives will be used for the development of the strategic plan. This strategic plan is necessary to guide Southern University and its College of Engineering toward increasing the supply of minority engineers throughout this decade and into the next century.